An Experimental and Analytical Investigation into the Statistics of Creep Rupture

This research performs experimental and analytical investigations into the statistics of the scatter in time-to-failure data from creep rupture tests. Available experimental data in creep rupture show considerable scatters and variations. Mechanics research, thus far, has not quantified the nature of such scatters or accounted for it in the design of structures. The research consists of two parallel phases. The first phase is an experimental investigation into the statistics of rupture in biocrystals and other simple structures. The second phase is the construction of microstructurally-based analytical models which will allow probablistic predictions of time-to-failure. The results of this research will provide new and fundamental insight into the probablistic aspects of the creep rupture process in simple crystalline structures and will help to lay the foundations to understand the actual nature of the creep rupture of complicated poly-crystalline structures.